ROA: Stability and Partial Melting

The principal investigator will experimentally study phase equilibria involving volatiles under conditions relavant to the Earth's mantle. The results will be used to model the development of the oxidation state of the mantle during melting events. It will also lead to a greatly improved understanding of the state of volatiles in the mantle.